Pattern and Scale in Disturbance-Mediated Systems

This project will involve the application of descriptors ofspatial and temporal patterns in the interpretation of theheterogeneous dynamics of disturbance.influenced systems. First,the properties of a range of standard and less common patterndescriptors will be explored theoretically, through computersimulations of a general model and a number of more specializedmodels. The descriptors to be used include semivariance,spectral analysis and fractals. Next, the descriptors will beapplied to a well.developed data set for the serpentine grass.land at Jasper Ridge, California. The goal in this case is thedevelopment of models that can describe vegetation pattern atJasper Ridge and other disturbance.influenced sites. Finally,the models will be tested for tree communities of Barro ColoradoIsland, Panama, an experimental field in central Illinois, andthe Duke Forest. The long.term goal for these pattern analysis exercises is toimprove our ability to interpret landscape patterns and theircauses. Ultimately, it will be important to explore the effectsof biotic patterning on ecosystem processes includingbiogeochemical cycling. Dr. Levin is a leader in the field of pattern analysis inecology. The cooperation between Levin and Dr. Mooney, andempiricist in charge of the Jasper Ridge project, must beconsidered a strong point of this proposal. This institutionalsupport for this research in excellent.